RAPID: Sugar-based Recyclable Phase-Selective Gelators for Oil Spill Remediation

1046099
John

The blowout of an oil well in the Gulf of Mexico is set to cover 120 miles of coastline and hence tremendously affect the ecosystem. The scale of such disasters has highlighted the need for effective and eco-friendly materials to contain oil spills. Here in, the investigators propose the sugar based environmentally benign phase-selective gelation agents for efficient containment of oil spills and recovery of oil as well. Phase selective oil gelators (PSGs), when added to an oil/water mixture, selectively partition into the oil phase and convert it into a gel. The proposal builds on recent preliminary results where a class of sugar amphiphiles derived from mannitol (an open chain sugar) has shown to be capable of selectively gel several oils. As shown in the image, the obtained oil gel (diesel gel) can be strong enough to hold not just its weight but also that of the water on top in the inverted vial. Selective gelation of diesel from bulk diesel water mixture and simultaneous recovery of diesel, with 80% efficiency, was demonstrated. Hence, they can be potential alternatives to the current oil spill remediation techniques. Therefore, we propose a) to conduct a comprehensive (fundamental and applied) study into the phenomenon of phase selective molecular gelation in relation to open chain sugar amphiphiles and b) to obtain design parameters (rationale) for optimizing the amphiphilic structure for better selective gelation ability and efficient oil spill clean up.

Intellectual Merit: The investigators focus on the fundamental science behind the phenomenon of phase selective gelation pertaining to oil spill applications. The goal is to construct rationale for generating bio-based PTh. The PIs hypothesize that open chain sugar head groups and hydrogen bonding interactions are likely to be important for selective gelation of oils. Hence, amphiphilic structure will be accordingly varied to obtain design parameters. The nanostructure of phase selective gels (characterized by TEM, SEM, and cryo-TEM) and intermolecular interactions in the gel (probed by spectroscopic techniques) will be systematically related to amphiphilic structure.

Broader Impact: The broader scientific impact will be the applications afforded by the inexpensive and eco-friendly phase selective gelators to be synthesized in this project. The phase selective gelation of oil from a mixture of oil and water could be a viable approach for the containment and remediation of oil spills on the ocean. In addition, the availability of phase selective gelators may allow engineers and scientists to devise ingenious uses for these molecules. The PI will also integrate their research with educational and mentoring activities.